The Nepheloid Layer in the World Ocean

9302865 Biscaye Funds are provided so that the LDEO nephelometer data set collected over two decades from the worlds ocean can be complied into a usable form using current computers. The data will be plotted, interpreted and published. The PI has already amply proven the extreme value of this type of data in a completed study of the Atlantic in various oceanographic disciplines. ***